A Fluid Simulation Methodology and Tool for Complex Large Scale Net-works

In this proposal a complete study of fundamental issues, both experimental
and analytical, in ultra-wideband (UWB) radio is presented. The proposed
work involves a strong interaction between experimental and analytical
components, so that experimentally derived models can be used to design
optimized algorithms, which can in turn be tested. For this purpose, radio,
video, and test equipment is requested to complement existing facilities in
the ultra-wideband radio lab (UltRa Lab). This equipment will be used for
three closely related research projects that support the development of
fully mobile indoor video communication systems. The motivating wireless
technology is spread-spectrum impulse radio, which alleviates multipath
problems, but must coexist in the same spectrum with signals in the
frequency range from roughly 500 MHz to 2 GHz. The experiments are aimed at
(1) quantifying the ability of different radio systems to coexist in the
same band without mutually interfering, (2) quantifying the distortion
properties of ultra-wideband antennas and propagation environments, and (3)
measuring the effects of indoor radio performance anomalies on video
transmissions. The equipment requested includes anechoic chamber
components, a flexible software video compression system, high quality LANs
that can be utilized in both the video and radio interference experiments,
and a bit error rate tester and other components necessary for interference
and coexistence tests. These experiments will result in a database of
channel measurements which characterize propagation, antenna, and
interference effects. The database will be used to extract statistical
models which, in turn, will be used to develop algorithms for receiver
signal processing and video rate control. This process of experimentation,
model extraction, and algorithm development will be iterated throughout the
duration of the requested support. Each of these experiments is briefly
described below.
>
>(1) Interference Rejection and Coexistence Experiments and Analysis
(Scholtz and Chugg). This experimental work will explore the ability of
impulse radio with power spectrum thinly spread roughly from 500 MHz to 2
GHz to coexist over short range channels with the myriad of other electronic
systems in that broad spectrum. This effort will test coexistence with
LANs, cordless phones, microwave ovens, wireless TV links, etc. The
processing gain of the spread spectrum techniques employed in the impulse
radio will be checked and the dynamic range of current impulse radios will
be tested. These experiments will determine the direction of research
efforts on impulse radio implementation.
>
>(2) Characterization of ultra-wideband antennas and propagation
environment (Prata, Chugg, Scholtz). The experimental work to be carried
out in the controlled environment of an anechoic chamber supports the
characterization of ultra-wideband antennas for impulse radio, and the
characterization of narrower-band antennas to evaluate their ability to
receive/reject impulses. This environment will be used to evaluate new UWB
antenna designs that provide more robust spatial coverage, better pulse
shaping characteristics, polarization diversity, and to study the
propagation of UWB signals through different kinds of materials. The
equipment purchased under this grant is destined for an anechoic chamber at
least 15' (w) x 15' (h) x 30' (l) to be constructed in the near future
(architectural work on the building containing this chamber is beginning
>now).
>
>(3) Experiments with Software-Compressed Asynchronous Video over UWB
Wireless Links (Ortega, Chugg). Two stages are planned in the experimental
work with robust asynchronous video transmission. In a first stage, laptops
and wireless LAN equipment will be used to test techniques, which are
currently under study for rate control over a time varying channel. All
video functions (compression, rate control, error correction,
retransmission, etc.) will be implemented in software. In a second stage
the algorithms will be adapted to operate over an experimental impulse radio
link. At that point the results from the initial stage will be incorporated
and also changes needed for the particular transmission conditions of
impulse radio will be implemented.
>
>
>Each of the student researchers supported under the requested funding will
be involved in all three of these aspects. This research will be further
supported by the UltRa Lab infrastructure, which has been developed recently
under the support of NSF and through the Integrated Media System Center ERC
and our industrial sponsors. The infrastructure includes laboratory space,
equipment, a team of undergraduate merit scholars to assist in laboratory
procedures, and access to circuit and semiconductor process expertise from
both USC collaborators and industrial partners. The research described in
this proposal is a portion of the fundamental investigations required to
develop and demonstrate UWB indoor radio multimedia systems (complementary
investigations into integrated circuit design are also necessary, but are
not part of the research proposed herein). The original equipment budget for
this proposal has been revised to reflect equipment acquisitions from other
sources and no other proposals for this work are currently pending.
>
>